Molecular Analysis of Terminal Oxidases from N2-fixing Azotobacter vinelandii

Biological nitrogen fixation catalyzed by the procaryotic enzyme nitrogenase is essential for a positive input of N on Earth. The N2-fixing bacterium Azotobacter vinelandii contains two terminal oxidases responsible for aerobic O2-consuming respiration. One of the oxidases (cytochrome o) is coupled to ATP production, but the other oxidase (cytochrome b/d) complex) appears not to be coupled to energy generation. The latter vigorously O2-consuming oxidase is thought to be important in removing O2 so that the O2-labile nitrogenase enzyme can function. The specific roles of each of these oxidases in respiratory protection of nitrogenase and respiratory metabolism of the bacterium are not well-understood. It is proposed to compare structural gene mutants in the terminal oxidase cytochrome b/d and cytochrome o with the wild type in many parameters associated with N2 fixation respiration. Also the cyt b/d complex will be purified and reconstituted into lipid vesicles to directly measure its ability to generate an electrochemical proton gradient (energy-generating ability). Assuming lack of electrochemical gradient formation by the purified cyt b/d complex in membranes, we will then characterize the pertinent structural features that span the periplasmic and cytoplasmic portions of the membrane, and responsible for differences in the uncoupled (non energy generating) terminal oxidase of A. vinelandii in comparison with the well-characterized energy-coupled cyt b/d oxidase of E. coli. The transcriptional regulation of these two terminal oxidase complexes, especially their regulation in response to N and O2 levels will be addressed. The results are expected to enhance our knowledge of the diversity and flexibility of bacterial respiratory metabolism and specifically on respiratory metabolism in conjunction with N2 fixation.